NSF FF: Planning: Co-Designing AI-Supported Systems for Authentic Inquiry & Integrated Learning

This FINDERS Foundry award convenes an interdisciplinary team of K-12 teachers and administrators, technologists, researchers, students, and parents/caregivers to co-design AI-enabled teacher workflow tools that reduce the friction of cross-disciplinary lesson planning, standards integration, and family communication, reclaiming the instructional time educators need to facilitate authentic student inquiry. Stakeholders ideate solutions for an AI-supported teacher workflow tool in which teachers can plug-in state standards and evidence-based instructional frameworks, paired with a local configuration layer allowing each district to integrate its adopted curricula, scheduling constraints, and scope-and-sequence calendar. A final phase will validate findings with the community and formalize an interdisciplinary network and development proposal to create a meaningful and scalable inquiry-based integrated learning that can also support student achievements in STEM.

This FINDERS Foundry award generates new understanding of how AI can be responsibly integrated into K-12 instructional workflows to support authentic, interdisciplinary inquiry. A stakeholder-driven planning process will co-design AI-enabled teacher workflow tools that reduce the friction of cross-disciplinary lesson planning, standards integration, and family communication, reclaiming the instructional time teachers need to facilitate authentic inquiry. Rather than positioning AI as an add-on technology, the project investigates how AI can absorb the administrative and planning friction in teachers' workflows and enable pedagogical approaches that align with evidence-based principles of the learning sciences. This work builds upon research practice partnership models and contributes to the emerging evidence base on AI-supported instructional design tools, an area with limited empirical grounding to date. The varied educational settings in which the work is situated yield design insights around the conditions under which AI-supported tools can more effectively be implemented within K-12 instructional practice.